Hawaii Ocean Mixing Experiment: Survey Profiling: Full-Depth Census of Tide-Topography Interactions

Sanford 9819537

It is proposed to conduct a large coordinated experiment near the Hawaiian
Ridge to determine whether sites with rough topography are responsible for the
mixing of the global ocean. The goals are to identify the major energy pathways
for ocean mixing and achieve an approximate energy budget for the region. The
Survey experiment will address the problem of finding a Nearfield site through
broad ranging and focused survey. In particular, this project will examine the
relationship between internal tidal energy, finescale shear, energy flux
divergence, dissipation and ridge topography by conducting high resolution full
water column profiles.